Collaborative Research: Highly Structured Models and Statistical Computation in High-Energy Astrophysics

Pricipal Investigators: David Van Dyk and Xiao-Li Meng

Institutions: UC Riverside and Harvard University

Collaborative Research: Highly Structured Models and Statistical
Computation in High-Energy Astrophysics

Abstract

The California-Harvard Astrostatistics Collaboration aims to design
and implement fully model-based methods of statistical inference to
solve outstanding data analytic problems in high-energy
astrophysics. The Collaboration's methods explicitly model the
complexities of both astronomical sources and the data generation
mechanisms inherent in new high-tech instruments and fully utilize the
resulting highly structured models in learning about the underlying
astronomical and physical processes. Using these models requires
sophisticated scientific computation, advanced methods for statistical
inference, and careful model checking procedures. The PIs of the
Collaboration (van Dyk and Meng) both have substantial research
experience in developing the methods that the Collaboration is
extending, employing, and publicizing: inferential and efficient
computational methods under highly-structured models that involve
multiple levels of latent variables and incomplete data. Such models
are ideally suited to account for the many physical and instrumental
filters that compose the data generation mechanism in high-energy
astrophysics. The five consultants on the project (Chiang, Connors,
Kashyap, Karovska, and Siemiginowska) all have expertise on the
instrumentation and science of high-energy astrophysics, and, all have
collaborated with statisticians in efforts to develop appropriate
methods to address scientific questions. There are two primary impacts
of this project: the impact of the development of more reliable
statistical methods on scientific findings in astronomy and the impact
of the new statistical inference and computation methods in a wide
range of scientific fields. As the Collaboration develops methods and
distributes free software for specific inferential tasks, it also
educates the astronomical community as to the benefit of careful use
of sophisticated statistical methods. (The Collaboration organizes one
or two special sessions at meetings of the American Astronomical
Society each year.) It is expected that a fundamental impact of the
proposed research will be a more general acceptance and more prevalent
use of appropriate methods among astronomers. Second, the
Collaboration is an example of a new mode of statistical
inference. Rather than using off-the-shelf models and methods, it is
becoming ever more feasible to develop application specific models
that are designed to account for the particular complexities of a
problem at hand. The Collaboration develops inferential and
computational methods for handling such multi-level models. As
application specific multi-level models become more prevalent, these
methods will have application throughout the natural, social, and
engineering sciences.

In recent years, there has been an explosion of new data in
observational high-energy astrophysics. Recently launched or
soon-to-be launched space-based telescopes that are designed to detect
and map ultra-violet, X-ray, and gamma-ray electromagnetic emission
are opening a whole new window to study the cosmos. Because the
production of high-energy electromagnetic emission requires
temperatures of millions of degrees and is an indication of the
release of vast quantities of stored energy, these instruments give a
completely new perspective on the hot and turbulent regions of the
universe. The new instrumentation allows for very high resolution
imaging, spectral analysis, and time series analysis. The Chandra
X-ray Observatory, for example, produces images at least thirty times
sharper than any previous X-ray telescope. The complexity of the
instruments, the complexity of the astronomical sources, and the
complexity of the scientific questions leads to a subtle inference
problem that requires sophisticated statistical tools. For example,
data are subject to non-uniform censoring, errors in measurement, and
background contamination. Astronomical sources exhibit complex and
irregular spatial structure. Scientists wish to draw conclusions as to
the physical environment and structure of the source, the processes
and laws which govern the birth and death of planets, stars, and
galaxies, and ultimately the structure and evolution of the
universe. Nonetheless little effort has been made to bring the
strength of modern statistical methods to bare on these problems. The
California-Harvard Astrostatistics Collaboration develops statistical
methods, computational techniques, and freely available software to
address outstanding inferential problems in high-energy astrophysics.
The methods developed are an example of a new mode of statistical
inference: Rather than using off-the-shelf methods, it is becoming
ever more feasible to develop methods that are application specific
and are designed to account for the particular complexities of a
problem at hand. The inferential and computational methods designed by
the Collaboration for handling such multi-level models have
application throughout the natural, social, and engineering sciences.